CIF:Small: Ramanujan-sums in signal representation

This research explores new directions in the representation of signals, based on certain
mathematical ideas introduced by Ramanujan many decades ago. In particular the applicability of
Ramanujan-sums in the representation of digital signals is studied in detail. Signals acquired and
stored in many scientific areas such as speech, music, medical, genomic, and finance often
contain hidden periodic patterns bearing important information. These are difficult to identify and
localize because of the large volume of data, and extreme localization of information.
Conventional representations of signals based on Fourier and wavelet transforms are not efficient
for this purpose. This research involves the use of Ramanujan-sums to develop new
representations that are efficient and economical. These offer insights into the role of
mathematics, especially number theory, in representation of signals in science and technology,
with emphasis on particular hidden structures such as periodicities. Such representations are
expected to have significant impact in scientific applications involving large data bases.

More specifically, the research goes deep into Ramanujan subspaces, nested periodic subspaces,
and Ramanujan filter banks, which are crucial to the representation of periodic sequences. This
enables one to address some fundamental research problems in signal processing. This includes
the minimum information that should be gathered from a discrete-time signal in order to identify
multiple periodicities, the design of digital filter banks that serve as projection operators onto
periodicity subspaces, and optimal design of dictionaries of atoms to represent sums of periodic
signals with unknown integer periods. The research also involves the theory and implementation
of gridless methods to achieve super resolution in period-estimation for continuous-time signals,
and extension to two- and higher-dimensional signals.